Minorities in Biology: Opportunities For Growth August 8, 1990, Richmond, VA

Blockstein Funding is requested for a one day program, "Minorities in Biology: Opportunities for Growth" to be held August 8, 1990 at the 41st annual meeting of AIBS in Richmond, Virginia. The program will consist of a morning program for high school students in the local region, a buffet lunch for high school students and teachers, an afternoon symposium, and an evening reception for all participants in the meeting. The goals of the program include: 1. To inform high school and college students of ethnic minority groups about career opportunities in biology; 2. to increase contact between ethnic minority biologists, especially at historically black colleges and universities, and other professional biologists; and 3. to raise the awareness among professional biologists of issues, concerns, and opportunities regarding ethnic minorities in biology.